Expert System Analysis for Monitoring and Diagnosis of Gas- Solid Transport Systems

The application of fuzzy modeling and on-line signal processing to develop an expert system analysis for the operation and control of bulk transportation systems is proposed. Pressure fluctuation signals will be used to identify the flow pattern. The proposed expert system will provide a diagnostic and optimization tool for gas-solid transport systems.